Polylogarithms and Motivic Cohomology

There are two main approches to motivic (co-)homology appearing in
recent years. First, one tries to construct it as cohomology groups
of certain complexes with terms being given by explicit
generators and relations generalizing Milnor's K-groups. Second, one
can construct cohomology of a scheme as cohomology of a complex
defined in terms of algebraic cycles thus generalizing the classical
defintion of Chow groups. Each has its own advantages and disadvantages.
Dr. Jianqiang Zhao's research will continue his work
on understanding both approaches by using
polylogarithms and their generalizations.
Polylogarithms have been around for centuries in one form or
another, but only recently has their whole theory become available.
They have deep connections with both number theory and modern
mathematical physics. This project should shed light on these connections.

This research is in the field of arithmetic algebraic geometry,
a subject that combines the techniques of algebraic geometry and number
theory. In its original formulation, algebraic geometry treated figures
that could be defined in the plane by the simplest equations,
namely polynomials. Number theory
is the study of numbers that can be expressed in
terms of whole numbers, 1, 2, 3... In the second half
of last century these two seemingly far apart subjects have produced
tremendous impact on each other. The field of arithmetic algebraic
geometry now uses techniques from all of modern mathematics.